Engineering Research Equipment Grant: Particle Image Velocimeter

A particle image velocimeter is to be acquired and utilized in an ongoing broadly based research program dealing with unsteady flow- structure interactions and flow-driven structural oscillations and instabilities. Experimental data from the additional equipment will be used to evaluate current theoretical models and in the development of improved predictive capabilities for flow-structure interactions.